Geometric Group Theory

Proposal: DMS-9971682

PI: Jonathan McCammond

Abstract: In the current project, the Principal Investigator will continue his
study of the topological structures on which various interesting
classes of groups can act. In particular, the PI will show how
various types of Artin groups, Coxeter groups, braid groups, Burnside
groups, and pure symmetric automorphism groups can be made to act on
spaces constructed to have one or more additional properties. The
ability to construct such spaces has long been a goal of geometric
group theorists. Since many of these groups arise as the fundamental
groups of configuration spaces the pattern underlying much of the
proposed work can be summarized as follows: a topologically defined
space whose fundamental group is of interest is made to act on a
piecewise Euclidean cell complex whose structure is understood well
enough to have computational comsequences for the group involved. The
aim of this project is to increase the number and variety of groups to
which thiss type of procedure can be applied.

This type of project continues the recent emphasis within geometric
group theory on the practical, computational aspects of mathematics.
The results under consideration will not merely show the existence of
various objects, but will provide algorithms for their construction
and bounds of the complexity of the procedures involved. Thus all of
the work described can be implemented as a computer software package
which performs these types of computations. This explicit emphasis on
the algorithms and their complexity makes geometric group theory a
close relative of theoretical computer science and of the real world
applications of these techniques.